Systematics of the Tropical Genus Heliconia (Heliconiaceae) Subgenus Griggsia

Research on tropical plants and animals is especially important at this time because of the current high rates of destruction of tropical forests and the imminent extinction of many species that inhabit them. Dr. John Kress of the Marie Selby Botanical Gardens plans to study the South American species of the banana-relative Heliconia, a genus which includes the horticultural lobster-claw plants. Field collecting will be conducted in northern South America, to acquire living materials and preserved specimens. These will serve as the basis for study of macroscopic and microscopic features of the plants. Especially important will be investigations of pollen structure using the scanning electron microscope, in which Dr. Kress has already found distinctive patterns for many species. Information from morphology, geographic distributions, and habitats will be integrated into a comprehensive taxonomic treatment of the estimated 80 species of Heliconia that produce hanging or pendent inflorescences and their relatives. The study will improve understanding of tropical forest diversity and help in analyzing processes of speciation and evolution in tropical environments.